AF: Medium: Collaborative Research: Integral-Equation-Based Fast Algorithms and Graph-Theoretic Methods for Large-Scale Simulations

The phenomenal advance in computer technology in terms of processing
speed and capacity, closely described by Moore's law, in the last four
decades has been outpaced by the explosive amount of data that are used
to describe more realistic models in scientific computing. For instance,
the number of unknowns in a linear system has grown from hundreds in
the past to tens of millions nowadays. Fast algorithms such as the
celebrated fast multipole method (FMM) have provided a computational
tool for narrowing the gap. At the same time, there is a great need
and challenge to develop better computation techniques and utilize the
present and emerging computers, with the gain in speed up to a couple
of orders of magnitude. The goal of the proposed research is to
advance computational theories and techniques, in order to meet the
demand and challenge for large scale simulations of complex
systems in scientific, medical and engineering studies.

The research team proposed to investigate, innovate and integrate the
key simulation steps, from analytic re-formulation of system models with
complex geometries to combinatorial optimization in mapping numerical
algorithms to computing architectures. Many traditional models are
formulated in terms of linear or nonlinear partial differential
equations (PDEs) with boundary conditions on complex geometries. By
the work of other researchers and principal investigators,
integral equation (IE) formulations have lead to better numerical
algorithms in both efficiency and stability, and more importantly
enabled certain important large-scale simulations. It is proposed first
to study the reformulation of traditional PDE models into IE models, as
a direct and analytical approach to innovative algorithm design. Next,
preconditioning techniques will be studied as an indirect and
stabilization approach. Furthermore, Graph-theoretic methods will be
applied to optimize the FMM-based algorithms on various modern
computer architectures, especially, parallel architectures. These key
components will be studied in conjunction, not in isolation.

The intellectual merits of the proposed work are three-fold.
It sheds lights on (1) the model reformulation into IEs of the second
kind as a fundamental analytic-algorithmic approach to accelerating
and stabilizing numerical computation, (2) the connection between
reformulation and preconditioning, and (3) on the mutual dependence
of numerical algorithms and computer architectures. The proposed
work will have broader impacts on various applications through
timely dissemination with demonstration of case studies. Three
application areas of specific concern are electrostatics calculation
in molecular dynamics simulations, computational fluid dynamics, and
the study of oxygen delivery in tissues and tumors via microvascular
networks. The proposed work involves interdisciplinary research
collaboration and cultivation of young and new researchers with
multi-disciplinary backgrounds. Finally, the findings and
algorithms will be embodied in open source high performance
software to facilitate research computing by and large and to
be used in classrooms.